Interactive Model of the Vocal Folds and Turbulent Noise forSpeech Synthesis

The research goal is to model the dynamic vibratory motion of the vocal folds using an interactive, three dimensional vocal fold model, whose parameters can be adjusted by the researcher to interactively test new hypotheses concerning voice production. The methodology includes spectral shaping and noise modeling of fricatives, plosives and affricatives as well as nonlinear dynamic modeling of vocal fold motion. A major motivation for this model is that imaging and other methods for measuring aspects of vocal fold vibratory motion are difficult tasks that involve probes inserted into the throat. The vocal fold model will be tested using an articulatory speech synthesizer developed by the author under previous NSF sponsorship. The significance of this interactive model is that its features and parameters can be modified and are related to physiological characteristics of the speech production process. Three applications for the research results are training aids for the hearing impaired, methods to improve the design of speech production systems for the vocally impaired, and improved speech coding based on articulatory movement.